Microarray Workshop for Undergraduate Faculty to be held Summer 2004 at Georgetown University, Washington, DC

The Genome Consortium for Active Teaching (GCAT) will conduct a workshop in summer, 2004, to prepare professors to use microarrays in their undergraduate teaching and research. The manual and readings will be prepared based on planning from the GCAT's 2003 workshop at Institute for Systems Biology. The workshop will be held at Georgetown University and The Institute for Genome Research (TIGR). The faculty for the workshop will be participants from the 2003 workshop. The workshop period will begin with an introduction to the features and uses of microarrays, followed by data analysis training for 30; 20 of these will continue into a microarray hybridization session. During the array hybridization, another 30 participants will be introduced to microarrays and have a data analysis workshop. In this way, professors will be prepared to use microarrays with undergraduates in both their teaching and their research. The manuals for data analysis and microarray hybridization will be placed on the GCAT web site, articles featuring the lessons of the workshops will be written, and the findings will be presented at meetings by the workshop faculty.